Research Initiation Award: Robust Stabilization of Time Delay Systems

The main research goal of this project is to develop computational methods for testing robust stability and designing robust stabilizing controllers for linear systems with uncertain parameters and time delays. This is one of the main open problems in control theory today since the presence of time delays in the feedback loop affects heavily the robustness of a control system. The following particular objects are in focus: 1) Characterization of those classes of time delay systems for which the Kharitonov type results hold. 2) Derivation of efficient computational tools for testing robust stability of delay systems with the polytope structure in space of uncertain parameters. 3) Development of the theory of robust stabilization of delay systems with possible implications for the general methodology of robust controller design.